CAREER: Advancing Periodic Wavefunction Methods for Polaritons: Toward Quantum Control in 2D Materials

Xiao Wang of the University of California, Santa Cruz is supported by NSF to develop new computational methods for predicting how light interacts with two-dimensional (2D) materials placed inside optical cavities. When 2D materials, such as hexagonal boron nitride (h-BN) or transition metal dichalcogenides (TMDs), are confined between two mirrors, light and matter combine to form hybrid states called polaritons. These states offer a powerful new way to control the properties of quantum systems, with direct relevance to Quantum Information Science (QIS) applications in quantum sensing, quantum computing, and secure quantum communication. However, the design of such quantum platforms is currently limited by the accuracy of existing computational tools. Professor Wang and his research group will develop a new class of high-accuracy simulation methods to enable rational design of 2D quantum materials for next-generation quantum technologies. Through this program, Professor Wang will also conduct a multidimensional study of quantum mechanics (QM) learning challenges and quantum literacy among chemistry students, develop a freely available, web-based interactive quantum chemistry laboratory module to lower barriers to QM for UCSC's student population, and host a guest seminar series exposing students to quantum science research and careers.

In this project, the Wang research group will develop a comprehensive suite of wavefunction-based ab initio quantum electrodynamics (QED) methods for modeling strong light-matter coupling in extended systems, including periodic QED generalizations of Hartree-Fock, second-order Møller-Plesset perturbation theory, configuration interaction methods, and coupled-cluster theory with its equation-of-motion extension. These approaches will combine the systematic accuracy and improvability of wavefunction-based methods with the ability to treat polaritons in extended 2D materials, addressing a critical gap left by existing model-Hamiltonian and DFT-based QED approaches. The methods will be further integrated with embedding strategies to enable high-level treatment of localized quantum defects within extended hosts. Initial applications include cavity-controlled point defects in h-BN and TMD monolayers to elucidate how strong light-matter coupling modifies geometries, electronic structures, and spectral properties of single-photon emitters for quantum sensing and photonic quantum information processing. All methods will be released through the open-source quantum chemistry package PySCF to benefit the broader scientific community.